Development of a Computerized Metabolic Map

9305224 Ochs This award will support the efforts of the investigator to transfer his database on metabolic pathways and the graphical user interface to the workstation (i.e. UNIX) computer environment. Under previous award the investigator has developed databases and related program which present metabolic pathways as a computerize map. These tools are available to the research community over Internet. Version of the code run under DOS and Microsoft Windows. In addition, the current award will allow the investigators to add new functionality of manipulation of metabolic trees. ***